RUI: Quantum Invariants of Three-Manifolds and Their Applications

Proposal: DMS-9971905

Principal Investigator: Joanna Kania-Bartoszynska

Abstract:
A fundamental problem of quantum topology is that of finding topological interpretations for the new invariants of 3-manifolds. The first part of this project places quantum invariants in the context of knot theory and representation theory. The investigator intends to use this context to analyze the asymptotic behavior of the quantum invariants of a 3-manifold in terms of representations of its fundamental group. The second part involves applying the quantum invariants to form criteria for the existence of symmetries in a 3-manifold.

The field of quantum topology began just over a decade ago with the discoveries of the Jones polynomial, by the mathematician V. Jones, and with the physicist's E. Witten's explanation of this polynomial in terms of the topological quantum field theory. Today it continues to be a dynamic area of research bringing together constructs and techniques from physics, algebra, geometry, and topology. The purpose of this project is to investigate further how these ideas fit together.